Variational Problems in Low Dimensional Geometry and Topology

9704949 Kusner This project deals with various geometric variational problems. One focus of the project is geometric moduli problems, especially for complete constant mean curvature surfaces and conformally flat constant scalar curvature metrics. Tools from mechanics and symplectic geometry - and in the case of surfaces, Teichmuller theoretic methods and representations involving spinors and quaternionic forms - is to be used to understand the structure of these moduli spaces. Geometric variational problems include a variety of problems where finding extremal or optimal objects amongst families of objects all satisfying certain boundary or initial conditions. For example, a minimal surface spanning a given boundary minimizes the surface area amongst all surfaces spanning the same boundary. Minimal surfaces, and more generally, constant mean curvature surfaces, can be used to model certain condensed matter - this is based on the observation that when two homogeneous media meet their interface forms a constant mean curvature surface.